Surface Segregation Induced Surface Phase Transitions and Equilibrium Forms of Alloy Crystals

This research examines phase transitions induced by surface segregation of solute in metal alloys. An associated surface miscibility gap is determined by experiment and modeling and the morphological features of the phase transition followed. A model of the transition is compared to experimental results. The model alloy system is copper-silver with selected alloy compositions. A second thrust is on the effects of surface segregation on the equilibrium form of alloy crystals and related surface energies. This research is performed on lead-bismuth and lead-tin alloys. This study of surfaces relates to a variety of physical phenomena occurring at or near crystal surfaces that in part determines the useful properies of such materials. Therefore this research is important to the continued advancement of materials.